Contemporary Applied Mathematics: Oregon Graduate Institute Young Scholars Early Alert Initiative

9353055 Nashner-Whitney The Oregon Graduate Institute of Science and Technology will initiate a four week commuter Young Scholars project in discrete and applied mathematics for thirty African Americans entering the ninth grade. The program will stress positive career skills, appropriate problem solving skills and the development of a network supportive of pursuit of mathematics or mathematics dependent careers. Students work in small groups with peer, tutor, and instructor support provided as needed. Students work with mentors from community businesses and agencies to solve problems in staffing schedules, restaurant waiting line management, traffic flow, bus routing and decision making protocols for trauma victims. Discussion of issues in the ethics of science will use the case study method. Career activities will feature site visits and guest speakers (especially African Americans). Four quarterly Workshops providing academic counseling, math review and a continued introduction to community professionals who use mathematics in their work will complete the project activities. ***